Conference: INTERNATIONAL CONFERENCE ON MOLECULAR BIOINFORMATICS, in Wadern, Germany, September 7-11, 1992

This award will provide support for US-based scientists to participate in the International Conference on Molecular Bioinformatics, which is part of the Dagstuhl-Seminar Series. The conference will take place September 7-11, 1992, in Wadern, Germany. The bulk of the award will support the travel costs of new researchers in this area. Molecular bioinformatics is an area in applied computer science which is rapidly gaining significance due to the explosion of basic data from molecular biology. This area is concerned with the development of methods and tools for analyzing and understanding the relationships between and the functions of macromolecules. The design of large biomolecules is an area of increasing importance that depends critically on computation. The workshop will be interdisciplinary (molecular biology, computer science, applied mathematics). The workshop will focus on the following topics: alignment of biomolecular sequences (DNA, RNA, protein); interpreting nucleotide sequences and their role in gene regulation; determining large genomic sequences by shotgun and other methods such as hybridization; modeling of large biomolecules, including the prediction and analysis of secondary and higher-level structure as well as spatial conformations (folding); molecular dynamics and simulations of interactions between biomolecules.